QCD-based Field Theory Modeling of Nuclear Interactions

9414291 Tandy Theoretical investigations and calculations in hadron physics are being carried out within a QCD-based model field theory for the non-perturbative regime appropriate to current and future nuclear physics issues. The specific topics being addressed include a confining quark condensate model of the nucleon, off-shell structure of the propagator for selected composite quark- antiquark mesons, dressed quark and meson substructure effects in electromagnetic and axial currents of hadrons, and meson mixing related to charge symmetry breaking in the nuclear force. The work is aimed at providing a bridge between quark-gluon dynamics and effective meson-nucleon dynamics that will be necessary as experimental programs, such those at CEBAF, probe nuclear interactions at a distance scale within the size hadrons. ***